Collaborative Research: CyberAI Innovation: CyberBridge: AI-Scaffolded Interprofessional Training Infrastructure for Cyber Incident Response

AI-enabled cyberattacks leave digital evidence that must be translated into legally sound investigations and prosecutions. However, digital forensic examiners and criminal justice professionals often lack opportunities to develop the shared vocabulary, procedures, and evidentiary understanding needed for effective collaboration. This project will address this gap by developing CyberBridge, an AI-scaffolded training system that pairs future forensic examiners and prosecutors in realistic cyber incident scenarios. Delivered through a web-based platform requiring no specialized hardware, CyberBridge will expand cybersecurity education to criminal justice students and support adoption by community colleges, regional universities, and law enforcement academies.

CyberBridge will integrate curriculum, simulated incidents, and a trustworthy multi-agent AI architecture for domain coaching, collaboration mediation, session orchestration, and trust verification. A Collaboration Mediation Agent will identify vocabulary mismatches, procedural misunderstandings, and evidentiary gaps and provide adaptive scaffolds informed by the Zone of Proximal Development. The project will contribute an interprofessional scripted-collaboration model, reusable AI-agent skills, and a Delphi-validated competency framework aligned with the NICE Workforce Framework and American Bar Association standards. A quasi-experimental study will compare CyberBridge with domain-siloed tutoring by measuring domain competency, collaboration quality, and AI literacy. Major project outputs will be released as open-source resources to support broad institutional adoption and strengthen the national cybersecurity workforce.

This project is supported by the CyberAICorps Scholarship for Service (CyberAI SFS) program which funds proposals to increase national capacity to educate and train professionals in Artificial Intelligence (AI) or Cybersecurity, and to support their placement and retention in the CyberAI mission of government organizations. The Scholarship Track funds academic institutions to award scholarships to students in exchange for their government service. The Innovation Track seeks transformative education proposals in the areas of AI, cybersecurity, or the integration of AI and cybersecurity.